Travel Support for Participation in SIA and NEMI Roadmapping Activities

9614519 Salmon Planning of the development of technology is critical for companies in high-cost, high-technology industries such as integrated circuit and electronic system manufacturing. In response to this need, two industry-wide efforts have been initiated; one under the auspices of the Semiconductor Industrial Association (SIA) and the other auspices of National Electronics Manufacturing Initiative (NEMI). The goal of the SIA technology roadmapping exercise is to plan research and development tasks required for the VLSI wafer fabrication industry. The goal of the NEMI roadmapping exercise is to plan research and development tasks for the electronics industry as a whole. ***